Near Real-Time Access to Earthquake Data in Central California

9628318 Romanowicz This grant provides $199,628 as partial support of the costs of acquiring strong motion and broadband seismic sensors, Quanterra data loggers, GPS receivers and frame-relay equipment to complement newly acquired (EAR-9512212) continuous GPS receivers that have been deployed in northern California as part of the Bay Area Deformation Network (BARD). The frame relay and seismic equipment will allow continuous and real-time monitoring of strain release associated with hazardous faults in the Bay area and real-time estimates of finite fault parameters in damaging earthquakes. Instruments will be installed at four sites in the BARD network. This equipment will allow the group at the Berkeley Seismographic Station to continue both seismic monitoring in the heavily populated Bay Area and fundamental research including studies of seismic attenuation in the upper mantle and modeling of crustal structure and the distribution of strong ground motions following large earthquakes. The acquisition of seismic data in real-time or near real-time should be of fundamental importance for future contributions to seismic hazard mitigation. ***